NSF Student Travel Grant for 2020 IEEE Radio Frequency Integrated Circuits Symposium (RFIC 2020). To be held August 4-6, 2020.

This project helps support the participation of around 40 US-based students to attend the IEEE Radio Frequency Integrated Circuits Symposium (RFIC 2020) originally scheduled for June 21-23, 2020 in Los Angeles and now a virtual symposium due to the COVID-19 pandemic. The Symposium is part of Microwave Week 2020, the world’s largest RF & microwave technical convention and will now be held from August 4-6, 2020. Over the last three years, the RFIC Symposium has been a three-day long event with over 900 registered attendees, including about 300 students. The project will support the selected students that are chosen for their registration fees to the RFIC Symposium. The RFIC Symposium organizers seek to increase the number of student participants by targeting women, undergraduates, and under-represented groups for participation. The aim is to support young researchers who might not otherwise be able to attend RFIC 2020 due to financial difficulty as well as to encourage the diversity of the field.

The RFIC Symposium is one of the world’s premier events to learn about RFIC design, technology and research. Students are able to obtain feedback on their work (through paper presentations and demos and
competition), talk with senior researchers from government, industry, and academia, and get exposed to
the latest research. RFIC 2020 has a number of events specifically beneficial to student researchers, which
are technical talks, interactive demo session, workshops, tutorials, technical lecture, exhibition, the three-
minute thesis (3MT®) competition program, and other targeted student activities. To summarize,
participation at RFIC 2020 will expose these US-based students to this critical research field of US
national interests (e.g., 5G wireless), enhance the research experiences for students, and provide increased
opportunities for new collaborations to advance knowledge.